Winter Workshop on Frontiers of Theoretical Statistics

Abstract:

The workshop "Frontiers of Theoretical Statistics" is dedicated to
exploring the most recent developments in the theory of statistics.
These include saddlepoint approximation, generalized linear mixed
models, bootstrap techniques, Markov chain Monte Carlo methods, Bayesian
inference, and combinatorial optimization, among others. The
workshop will provide an assessment of the current state of knowledge of
theoretical statistics, identify the most pressing needs for future
developments, and foster cooperation among research workers. The 12
invited workshop speakers are well-known leaders in theoretical
statistics. They include Jim Berger (Duke University), Peter Bickel
(University of California at Berkeley), Ronald Butler (Colorado State
University), R. Dennis Cook (University of Minnesota), Jim Fill (Johns
Hopkins University), Peter McCullagh (University of Chicago), Susan
Murphy (University of Michigan), Nancy Reid (University of Toronto),
Christian Robert (Ceremade University, Paris, France), Michael Steele
(University of Pennsylvania), Steven Stigler (University of Chicago),
and Bin Yu (University of California at Berkeley). The workshop will be
hosted by the University of Florida Department of Statistics, and will
be held at the J. Wayne Reitz Union of the University of Florida during
the period January 13-14, 2006.

Theoretical statistics is the foundation upon which all statistical
methodologies and applications are based. Many recent advances in
science, such as in biological and medical sciences, physical and
engineering sciences, are intimately connected to advanced statistical
and computational procedures. Some of the goals of the workshop are:
(a) To identify some of the major scientific questions and challenges in
the field of theoretical statistics that can only be studied through
interactive research. Focusing on such problems and trying to answer
them will contribute to science and humanity in a significant way.
(b) To provide support to new researchers by bringing them in contact
with experienced statisticians. The 12 invited senior speakers are
leading authorities on many aspects of theoretical statistics. Their
participation in the workshop will undoubtedly help in inspiring and
motivating the young researchers.
(c) To provide a platform for new collaborations on theoretical
statistics and its many related areas.
(d) Given the growing interest in finding immediate and direct
applications of theoretical statistics, the workshop will provide an
impetus to permeate new ideas in this direction.